Physical, Chemical, and Structural Investigation of ReactionCenters

Photosynthetic reaction centers in plants are the key to photosynthesis and hence life on Earth. The specific projects involve a variety of measurements on the quinone constituents of the reaction center. These include a) in vitro analyses, b) binding free energies of systematically varied quinonoid probe molecules and c) binding free energies of quinones in binding site structure varied through selected mutation. These data will, aided by computational methods, be used to construct a binding free energy map of the QA sites of the reaction center of Rb. sphaeroides and Rp. viridis. Building on this knowledge, we will test novel electron transfer events by making use of tethered diquinone molecules in which one quinone is in the QA or the QB site and the other occupies positions down the binding domain normally occupied by the native isoprene chain. %%% This work is also important for the following reasons: Quinone binding sites in proteins of respiration and photosynthesis are the targets of many herbicides and antibiotics. Quinones represent the structural foundation of a large class of chemical that includes certain vitamins, hormones, redox cofactors and drugs. Knowing how they bind and function in this system is yielding information that is of general application to the design of such molecules of value to the agricultural and medical fields. The opportunities they offer in addressing outstanding questions regarding how electrons transfer through proteins has similar importance. Control of how these common chemicals interact with natural tissue and what controls their redox activity again has impact on understanding the mechanisms of biological energetics, the side reactions of many drugs, and also forms the basis of developing guidelines for the design and ultimate synthesis of redox proteins.